Integrated Geological and Geophysical Investigation of Blind Thrust Faults in the Region of the January 17, 1994 Northridge Earthquake

9416344 Suppe This project uses geological and geophysical data combined with advanced techniques of structural modelling to obtain an integrated, self consistent solution for the three-dimensional blind-thrust geometry, slip vectors, and loading of the faults of the Northridge and San Fernando earthquakes and for other nearby blind thrust faults that may have been stressed by the closely related Northridge and San Fernando events. Refined fault geometries will be constrained by will tested theoretical relationships between fault shape and associated fold shape. The study will also determine whether there are other nearby fault segments that could slip in damaging earthquakes by using three-dimensional boundary element calculations to evaluate the stress changes on these faults due to the San Fernando and Northridge events. The results of this study will provide subsurface maps and cross sections of the San Fernando Valley and surrounding regions and will provide needed constraints on the presence and seismic potential of other blind faults in the region.